Earthkeeping: Restoration-based Teacher Training Institutes

9353445 Murray Teams of elementary and secondary school teachers participate in a series of Earthkeeping programs, in which the process of ecological restoration is utilized to teach prairie ecology, natural and cultural history. The program is conducted at the University of Wisconsin - Madison Arboretum over a period of two years per group of teachers. Two groups of teachers (96 teachers total) attend two 2-week workshops, meetings and conferences, and field days at the Arboretum with school classes. In the initial 2-week summer workshop, 16 teachers (teams of 2 teachers each from 8 schools) conduct hands-on ecological restoration activities -- planning, site analysis and preparation, planting and management. Teachers learn about the ecology, cultural and natural history of prairies as they learn how to reconstruct this biological community. They also experience activities suitable for use in the classroom and have time to develop curriculum plans. During the subsequent school year teachers and their students begin to plan and plant a prairie at their school. The 16 teachers return to the Arboretum the second summer with additional teachers from their respective schools (4 associate teachers per school on average). Each team of master teachers teach their colleagues and work with these associates to further develop curriculum plans and activities. The expanded teams of master and associate teachers offer inservice sessions on prairie ecology and prairie restoration for other teachers at their respective schools or districts. ***